Acquisition of Instrumentation for Research in Radio Frequency Wireless and Mobile Data Communication Networks

9512540 Mathys The proposed project requests major research instrumentation which consists of an RF channel simulator; microwave equipment for frequencies up to 40 Ghz including a spectrum analyzer, mixers, phase shifters, etc.; a frequency agile signal simulator; spread spectrum modems, fast A/D converters, fast DSP boards, and three workstations with simulation software. The equipment supports research and education in wireless and mobile communications. Planned research projects are in areas of channel modeling, microwave transmitter and receiver design and implementation, design and analysis of new modulation methods including transmission and reception diversity, implementation of novel concepts of detection, equalization and demodulation, design of multi-access protocols, and adaptation of routing and flow control algorithms for wireless environments. ***